Math/Science Fellows: Restructuring Mathematics and Sciencein Essential Schools

The Coalition of Essential Schools (CES) in co-operation with Brown University proposes an interdisciplinary training program for 96 Secondary Mathematics and Science fellows over 4 years. The 4 years will be divided into three 2 year cycles with 32 teachers in each cycle. In the first year each teacher will upgrade his/her content knowledge and pedagogical techniques. The teachers will attend, in the Spring, a one week orientation meeting to create working teams each to consist of eight science teachers and eight math teachers (designated as Fellows), one National Re: Learning Faculty member and to college faculty (one science, one mathematics). These teams will work together throughout the orientation and the Summer institute. During the orientation a detailed Summer program schedule will be developed based on the specific needs of the Fellows. An introduction will include the use of electronic mail networks and computer skills. In the four week summer institute the Fellows will formulate essential questions, participate in experiments: design, hands-on laboratory/field work, data collection and analysis and problem solving and developing pedagogical skills in investigative style classes. In the second year the Fellows will attend a spring orientation to assess the progress of implementation of math/science investigations in each school to develop additional essential questions and investigations and to identify pedagogical issues for examination during that summer. They will also receive extensive training in classroom observation and debriefing techniques and learn skills of consultation and conflict resolution. At the end of the project 96 math/science colleagues (each fellow mentoring 4 teachers). The fellows will also work as consultants in some 200 other essential schools located in states across the nation. Cost sharing is 13%.